Mathematics and Physics Commuter Program at Wayne State University -- EARLY ALERT INITIATIVE

Wayne State University seeks to provide an intellectually intense Early Alert Initiative (EAI) program in physics and mathematics for 40 talented and highly motivated seventh grade females. The participants will be from urban economically disadvantaged communities as well as some of their counterparts from suburban and rural communities in the Greater Detroit Metropolitan area. The program is a five week commuter summer program with follow-up activities during the academic year. There will be innovative mathematics activities, challenging physics activities focused on research methodology, philosophy and ethics of science, and career exploration.